Group Travel Support to the International Colloquium on Group Theoretical Methods in Physics; Salamanca, Spain; June 29 - July 5, 1992

This award provides travel funds for approximately seven young U.S. scientists, primarily graduate students and postdocs, to attend the XIX International Colloquium on Group Theoretical Methods in Physics, Salamanca, Spain, June 29 - July 5, 1992.